DISSERTATION RESEARCH: Systematics and Character Evolution of Passiflora supersection Disemma (Passifloraceae)

Abstract DEB 0407894

Passiflora (the Passionflowers) comprises more than 520 species of
vines or small trees with highly specialized flowers that occur in tropical
habitats worldwide. Most diverse in the New World, they are represented in
the Old World by only about 22 uncommon and poorly known species from Asia
and the Austral-Pacific region. Preliminary phylogenetic study indicates
that those 22 species descended from a single common ancestor, thus forming
a natural group (supersection Disemma). This group differs from other
Passionflowers in its floral development, unusual leaf arrangements, and in
the diverse array of sugar-producing nectaries found both in the flowers and
on leaves and stems, meaning that an understanding of character patterns in
this group is essential to understanding patterns of diversity in the genus
as a whole. A broad approach will be employed to reconstruct phylogenetic
relationships among the species, using characters from morphology and
anatomy of flowers and vegetative structures and nuclear and plastid gene
sequences. Nectaries will be studied by comparing gene expression among the
various forms to address the question of whether they share an underlying
genetic basis. A monograph for the section will be completed that will
present revised species circumscriptions, illustrations, distribution maps,
and keys to facilitate identification of these species, forming an essential
basis for conservation efforts for the group.

The project has impact far beyond serving as a dissertation study.
The Passionflowers are popular subjects for horticulture and therefore the
results of this work can have implications for commercial growers and
hobbyists. Extensive collaboration with researchers in Central and
Southeast Asia is an integral part of the study. Individuals from botanical
gardens and universities in Yunnan, Guangdong, and Hainan provinces of
China, as well as Vietnam, Thailand, India, and Papua New Guinea will be
involved in the acquisition and study of these species, strengthening ties
between US and foreign institutions. Collaboration provides an opportunity
for all parties involved to learn about the practical aspects of conserving
habitats and the rare species found within them. The monograph, including
identification tools for Disemma, will be made available to the public
broadly via the World Wide Web. This information will allow identification
of rare species of Passionflowers in the wild, facilitating conservation
efforts at the level of local management authorities. Live material
collected in the field will be cultivated and distributed to botanical
gardens in the United States, forming the basis for ex situ conservation
efforts. Preserved field collections will be distributed to herbaria,
increasing resources for future workers. The developmental study of
nectaries will provide a model for how genetic techniques can be used to
probe morphological diversity.